Mathematical Sciences: International Conference on Scientific Computation and Differential Equations

The principal investigator and his colleagues organize a meeting to bring together research workers at the forefront of activity in the broad area of scientific computing and differential equations; special emphasis is given to the solution of ordinary differential equations. The motivation for organizing a conference with this emphasis is to stimulate the field by fostering links among researchers in numerical ordinary differential equations and researchers in important areas of application and researchers expert in the qualitative theory of differential equations. The injection of these theoretical themes and application-oriented themes is designed to facilitate significant advances in computational aspects of ordinary differential equations. Scientific computing is fundamental throughout science and engineering, underpinning many of the important breakthroughs in basic research and technological advancement that have been seen in recent decades, and that will continue to arise in the future. Differential equations form models of many important real-world phenomena and scientific computing in this context is thus of paramount importance. This conference aims to bring together a variety of research workers in the field, including experts in application areas of scientific and engineering importance and computational applied mathematicians expert in computer simulations of differential equation models. The outcome of such a cross-fertilization of ideas will be beneficial to the advancement of basic science and to the development of technology.